XIVth International Conference on Photochemistry, August 21-26, 1989, Beijing, China

This is an interdisciplinary travel grant award to provide partial support for American scientists attending the XIVth International Conference on Photochemistry which will be held in Beijing from August 21 through 26, 1989. The local host will be the Institute of Photographic Chemistry of the Chinese Academy of Sciences. This Conference will provide an opportunity for American photochemists to meet, interact and perhaps establish collaborative relationships with their Chinese counterparts. Four established American scientists will be plenary speakers in each of three Sino-American minisymposia dealing with physical photochemistry and spectroscopy, organic photochemistry, and photosynthesis. Funds are provided for trans-Pacific airfare for the speakers and for registration and partial lodging expenses for 15 other American photochemists.